A Machine-Tool, Open-System Advanced Intelligent Controller for Sensor-Based Precision Manufacturing (MOSAIC-PM)

The MOSAIC-PM (Machine-Tool, Open-System, Advanced Intelligent Controller for Precision Manufacturing) is a broad-based integrated program. It includes the development of new algorithms which use touch-trigger probes to simplify two-dimensional and three- dimensional fixturing, development and evaluation of sensor systems, effective burr removal using computer-vision guided deburring tools and the development of expert systems for set-up planning and tolerance descriptions. The laboratory system is based on a DecStation/VMEbus/Real-time Unix/C environment. This research plans to integrate results so that a normal machine-tool becomes a mid-range precision machine. If successful this research will permit significant increases in machine-tool precision with little extra cost. This would lead to its use as a relatively low cost manufacturing research platform and could lead to a prototype of a next-generation controller for U.S. industry.